The Rencontres de Moriond Workshop entitled, "Energy Densities in the Universe"

This Proposal is for support beginning post docs and students to attend the 2000 Astrophysics Workshop in France on the topic of "Energy Densities in the Universe".